Analysis of Observational Evidence in Archaeology

Dr. Kosso is concerned in this project with the structure of archaeological knowledge. He is focusing specifically on the role of observation in archaeology and on the status of observation as objective evidence for claims made about the past. The demonstration by philosophers of science that observations are theory-dependent is as relevant to archaeological observations as it is to the natural sciences, and understanding the empirical basis of any science requires addressing the problem of theory-influenced observation. Dr. Kosso's most recent work has shown that we can concede to a certain amount of theory-dependence in observation without sacrificing the objectivity of the observational evidence if we insist that the theories which influence an observation are independent from the theory for which the observation is evidence. This concept of independence as a standard of empirical evidence has been successfully applied to examples in the natural sciences. Dr. Kosso is now applying the same methodological apparatus to analyze observational evidence in archaeology. This analysis is potentially of significance to archaeologists with a concern for empirical foundations of their science as well as to philosophers interested in the structure of scientific knowledge.